Computational Approach to the Developmental Biology of Dictyostelium

Statement of Objectives The objective of this research is to develop a computational model for the morphogenesis which occurs in the development of Dictyostelium discoideum. The life cycle of this microbial eukaryote progresses from that of a solitary amoeba to a differentiated multicellular organism, under the control of interlinked genetic and physico-chemical processes. The work will focus on extending successful models of early aggregation (encompassing chemotaxis and nonlinear cAMP waves) to the mound structure and subsequent tip elongation; also, we will incorporate recent data regarding the role of genetic networks in the signal transduction process into a more sophisticated and hence more predictive cAMP wave model. Experiments will be used to motivate modeling choices and subsequently to test predictions, leading after several iterative cycles to a simulation capability currently unavailable for this (or any other) developmental biology system. Methods to be Employed Simulations will be based on the recently introduced hybrid scheme where the individual amoebae are treated as automata which interact with the physical world of chemical signals, stress fields, etc., treated as a continuum. This methodology allows the modeler great flexibility in representing the manner in which a Dictyostelium cell obtains information from the surrounding world, reacts (via moving, emission of chemicals, modification of its internal state variables, etc) to that data. Supporting experiments will be performed by confocal fluorescence microscopy using cells which express green fluorescent protein under a variety of distinct promoters. This setup allows us to measure mound morphology dynamics as well as track individual cells (from specific differentiated cell lines if needed ) in the three dimensional multicellular body. Significance of the Propose d Activity to the Advancement of Knowledge or Education Computational methods are beginning to play an important role in biology. As the experimental data begin to indicate the complexity of genetic interactions and how these exert control over the developmental program, one will increasingly need to rely on computational procedures to get from single cell behavior to multicellular morphogenesis. This research suggests a case study of the? possible role of computation for the development of Dictyostelium. If successful, it will not only speed the rate of progresq in understanding Dictyostelium development, but will also serve as a guide for longer term efforts to bring a predictive simulational capability to the entire field of developmental biology.